Construction of a High-Speed Research Network in Nevada

9871974 Nichols Construction of High-Speed Research Network in Nevada The University and Community College System of Nevada (UCCSN), in conjunction with its three major research institutions, will develop the Nevada Research Network (NRN). This network will support a number of scientific research applications that require high bandwidth and quality of service features. The NRN is specified as an in- state research-only network based on ATM over OC3 (fiber optic) which will serve the University of Nevada, Las Vegas (UNLV), the University of Nevada, Reno (UNR), and the Las Vegas and Reno campuses of the Desert Research Institute (DRI). Five facilities and thirteen departments of these three institutions will be connected initially to the NRN. This high-speed connectivity will also provide the researchers at these three Internet 2 institutions with the opportunity to take full advantage of the National Supercomputing Alliance with EPSCoR states. The design of the NRN will provide for the cost-effective use of one or more very-high-speed backbone network system connections. The NRN consists of star topology network OC3 connections originating at the Reno and Las Vegas offices of the UCCSN s Systems Computing Services. Existing network infrastructures and Internet Protocol distribution systems of the three institutions and UCCSN supply service to designated departments. An OC3 line between the two SCS offices provides a north-south state backbone. An advisory committee, consisting of representatives from each of the participating organizations, will oversee implementation and will be responsible for developing NRN access and use policies.